Integrating HPCC into Physical Sciences Research

High performance Computing and Communications (HPCC) is evolving as a critical enabling technology for the sciences. We propose a program to integrate HPCC into selected research areas in the physical sciences. The program will be based around a core group of faculty who collectively span the required knowledge base and who are currently involved in joint interdisciplinary research programs. The primary mechanism will be the joint supervision of a student's research by two of the PI's. The PI's for this proposal will be faculty members in three departments: Aerospace Engineering Sciences (AES), Astrophysical, Planetary and Atmospheric Sciences (APAS) and Computer Science (CS), joined by a Co-I in Physics, J. Dreitlein. These four departments are nationally recognized by their active and productive graduate programs. Inter-departmental collaboration has increased with the award of a prestigious, multi-disciplinary HPCC Grand Challenge Applications Grant by NSF in 1992. HPCC awards from ARPA and NASA have further increased opportunities for interaction and outreach. These awards have provided state-of-the-art HPCC facilities available to GRT trainees. The graduate trainees will spend substantial residence periods at national supercomputer centers, government and industry research laboratories and international HPC centers.